Native American Mathematics and Science Education Leadership

9353470 Bordeaux Sinte Gleska University proposes to develop leadership teams and educate teachers to improve mathematics and science education for over 1000 American Indian elementary students. The three year project coordinates with the State SSI, the SKILL (Scientific Knowledge for Indian Learning and Leadership), Dakota BBS a small Indian owned business and several local school districts. No less than 94 teachers and 21-24 administrators from at least 8 target schools will participate in the project during the three years. 32 teachers (16 from grades K-4, 16 from grades 4-8) will enter the project at the beginning of the first Summer Institute. This group will participate fully in the project at least until the end of the second Summer Institute. Teachers may attend the entire three years of the project but in the third year they would be expected to act as mentors and facilitators. Mathematics and science education courses will be offered for 6 hours of graduate credit. An additional 2 graduate credits will be earned each summer through education practicum 1. Class members will develop integrated culturally-relevant learning units, learn and practice leadership skills, interact in small learning groups and with administrators and conduct individual or group learning projects. The entire program will support integrated mathematics and science for elementary students and will focus on both content and pedagogy. At least two administrators from each target school are expected to attend at least one Summer Institute for one week and to fully participate in mathematics and science education improvement in their school. American Indian families including both children and adults will participate in Family Math in-service programs. Follow-up activities include: * monthly Saturday Seminars beginning in November and ending in May; * a project Bulletin Board System will provide peer support for teachers, opportuni ties for collaborative teacher/student project undertakings both among program schools and nationally and world wide access to information. * the Rural Development Telecommunications Network (RDTN), a two way interactive TV network which links thirteen strategic locations in the state via fiber-optic cable, will be used to link project sites. No less than four 2- hour teleconferences will be held each year. Cost share on the project is 13%